Engineering Research Equipment Grant: Experimentation with Tightly Coupled Multiprocessor System

Researchers at NCSU plan to acquire a tightly-coupled multiprocessor system to complement the 24-node loosely-coupled multiprocessor system, B-HIVE, currently under development in their Computer Systems Laboratory. Much of the B-HIVE software can be adopted to work with the tightly-coupled system thereby providing a convenient mechanism for comparing and contrasting closely-coupled and tightly-coupled multiprocessor systems. This dual system will provide an experimental environment for the various research projects in parallel processing being carried out at North Carolina State University. Research will be performed on several projects, including: o Architectural Consideration, Software Support and Compiler Issues in Multicomputer Implementation o Selection Strategies for SIMD/MIMD Architectures and Performance Evaluation for Radar Signal Processing Applications o Randomized Algorithms for Tightly Coupled Multicomputer System o Testing and debugging of concurrent software o Computing Stationary Probabilities of Markov Chains